CAREER: New Analytic Techniques in Group Theory

Abstract

DMS 0643546
PI: David M. Fisher

The main thrust of the proposed research is to introduce
and develop new analytic techniques in group theory and
the study of group actions. Major projects include:
(a) studying quasi-isometries using a new notion of
coarse differentiation (introduced in recent joint work
with Eskin and Whyte)
(b) developing harmonic map techniques in rigidity
theory, particularly in the context of infinite
dimensional target spaces and
(c) developing a normal form theory for group actions
based on new generalizations and variants of hard
implicit function theorems.

All research lies in the broad interdisciplinary area of
rigidity in dynamics, geometry and topology. The grant
will also support summer schools devoted to new
developments in rigidity theory. The field is broad and
not entirely well defined, new developments frequently
involve ideas from other areas of mathematics. These
summer schools will provide students and young
scientists the opportunity to learn about new
developments quickly and to build the professional
networks required to remain abreast of future new
developments.

In the study of mathematical objects, a key role is
often played by the symmetries of the object --
particularly when the object has many symmetries. The PI
investigates ways of characterizing, describing and
studying spaces with many symmetries in various
dynamical, geometric and topological settings. These
questions are interdisciplinary in nature and often
require learning, adapting and applying ideas and
techniques from many areas of mathematics. The PI's work
has connections with diverse areas of mathematics: from
celestial mechanics (KAM theory and stability of the
solar system) to theoretical computer science (expander
graphs, Kazhdan's property (T) and coarse embedding
problems). Many proposed projects involve applying
analytic ideas and techniques to problems traditionally
studied by dynamical, geometric or topological methods.